Protein Purification by Continuous Centrifugation

Narrative: An assessment is proposed of continuous, high-g centrifugation for production purification of medical proteins is being studied. Proteins are separated today in ultra- centrifuges, but not continuously and the method has not been scaled up. The specific objectives are to assess: separation selectivity and throughput rate; possible biological damage to the protein by shear, by sedimentation, and by intense centrifugal force. The focus of the analysis is on internal flows in the rotating fluid and their impact on sedimentation and separation selectivity. The focus of the experiments is on the protein. Research on the hardware is reserved for phase II. If continuous centrifugal purification is feasible, a new method of downstream processing will become available to the biotechnology industry. Because downstream processing now represents 70-80 percent of the product cost, centrifugal separation could lower significantly the cost to the patient of new drugs.